The Role of the Surface in Binary Homogeneous Nucleation

John Schmitt and Gary Bertrand are supported by a grant from the Theoretical and Computational Chemistry Program to study binary homogeneous nucleation. In this project they will investigate the surface formation from effects observed in the binary homogeneous nucleation of two octane isomers. An expansion cloud chamber system will be used to make accurate nucleation measurements over a wide range of temperature, activity and nucleation rate. The data will test current theory and will be used to extend to the binary case a successful single component scaled nucleation theory which specifically incorporates the formation of a droplet surface. An accurate and proven description of the condensation of two vapors into a liquid droplet, binary homogeneous nucleation, will not only significantly advance understanding of the vapor-to-liquid phase transition, but will also find immediate and extensive applications in such diverse areas as formation of stratospheric aerosol, condensation in turbines, and distillation.